Computer Simulations and Graphical Displays of Statistical Problems (Physics)

Louisiana Tech University will provide research experiences for eight undergraduates in exploring the connection between randomness and fractional dimensions, particularly the connections between form and function based on the laws of probability. Projects include generation of high dimension fractals, investigation of critical behavior of fractals, and thermodynamics of fractal systems. Projects are designed to put results in visual form. All projects will be presented to the scientific community. Students will be selected from Louisiana Tech University and surrounding universities. This project is supported under the Program of Research Experiences for Undergraduates to help ensure an adequate supply of scientists for the future.